NER: Novel, High Throughput Continuous Nanoparticle Classifier (CNC)

Proposal No. CTS-0210534

Principal Investigator: Rajiv K. Singh
U Florida, Gainesville

Traditional methods of particle classification such as ultrasonic sieves and cyclones do not operate in the submicron range. The PI proposes deelopment of a novel method for particle size classification in the nanoscale range. The method is based on simultaneous application of pulsed and continuous DC electric fields on charged metallic particles in non-acqueous suspensions. In this setup, continuous DC fields are applied in the vertical direction, while pulsed DC field is applied in the horizontal direction. because of the difference in the electrophoretic response of charged particles to pulsed and continuous fields, the particle velocity field will be dependent on the particle size. This principle is used to classify submicron size particles.